III-COR: Collaborative Research: Graceful Evolution and Historical Queries in Information Systems--a Unified Approach

III-COR: Collaborative Research: Graceful Evolution and Historical
Queries in Information Systems-- a Unified Approach

Database schema evolution represents a constant in the life cycle
of Information Systems, and is the source of major costs for
maintenance, upgrading, and service down time. The traditional
schema revision process depends on the installation of a new
schema along with the revised database, and a converted set of
applications (laboriously rewritten to work with this schema).
Instead, this project develops the novel enabling technology
whereby the schema evolution problem is reduced to coordinating
mappings between multiple concurrent versions of the schema,
applications, and the database. This is realized by the
Meta-Manager system which provides integrated management of
evolving (i) data, and (ii) metadata, and efficiently supports the
(iii) mappings, and (iv) software artifacts needed for graceful
schema evolution. Further, the Meta-Manager allows for
preservation and querying of database history while it assists the
user in planning how to evolve the current schema version with
``what-if'' evolution scenarios. The functionality and performance
of the system is validated using various testbeds, such as, the
San Diego Supercomputing Center's Storage Request Broker, which
hosts scientific data for various research groups ranging from
astrophysicists to biologists.

This novel and timely approach provides a unified solution to both
the evolution and preservation of information systems. Because of
the key role played by information systems, a broad range of
scientific, educational, and economic activities will benefit from
these advances.

Results are disseminated via publications, reports and
demos available from the project web sites:

http://www.cs.ucr.edu/~tsotras/meta-manager
http://wis.cs.ucla.edu/projects/meta-manager
http://db.ucsd.edu/people/alin/meta-manager